A Study of Outstanding Issues in the Design of Algorithms for Partial K-Trees

The primary goal of this project is to create and expand research on efficient algorithms, both sequential and parallel, on partial k- trees, a family of graphs which is the subject of extensive study of late. The project covers design of new and efficient algorithms for partial k-trees and sequential and parallel implementations of some of these algorithms. The approach is based on solid foundations of a linear-time methodology (a systematic design tool) and not based on the traditional, ad hoc method for designing algorithms. The project outlined here is significant in the following ways: 1. The project will address several outstanding issues in the design of combinatorial algorithms for partial k-trees. 2. This research will act as a catalyst for research in parallel algorithmic aspects of work being done on graph minors. 3. On the practical side, this research is expected to shed light on the performance of mutually competing approaches to solving problems on partial k-trees.*//